A Study Toward the Feasibility of Using MPI as a message Passing Interface to Embed the Finite Element Methodology in a Distributed Environment

This Small Grant for Exploratory Research (SGER) will conduct exploratory research aimed at testing; a) the feasibility of developing finite element code in a massively parallel environment; b) the feasibility of using ATM as a data transfer protocol. This will be the first attempt toward exploting massively parallel environments and high performance computing in constructing a test-bed for networked, real-time, physically-based virtual reality.